Galois Groups and Fundamental Groups

The Principal Investigator studies Galois groups and fundamental groups
in algebraic and arithmetic geometry. In particular, he studies
generalizations of the conjectures of Shafarevich and Abhyankar on
Galois groups over varieties; lifting problems for covers, from finite
to mixed characteristic; and Galois extensions of the one-variable
function field over the field of rational numbers. Goals include the
development of Galois theory in higher dimensions, understanding good
reduction of covers, and computing fields of moduli of covers.
Achieving these goals would increase the understanding of the geometry
of surfaces and the link between number theory and topology. Methods
include formal patching, embedding problems, cohomology, birational
transformations, and group theory.

This project relates aspects of algebra and geometry in a way that makes
it possible to achieve research results that could not be obtained using
either of these two fields alone. The geometric spaces being studied
can be defined algebraically using equations, and the project makes use
of both the algebraic and geometric aspects of these spaces. A
particular focus of the project concerns the symmetries of these spaces,
which in turn correspond to symmetries involving the algebraic functions
on these spaces. The project studies what types of symmetries can
occur, which types of extensions of symmetry are possible, and what
types of algebraic numbers are needed in order to obtain a space with a
given type of symmetry.